SHF: Small: Scalable Trace-Based Tools for In-Situ Data Analysis of HPC Applications (ScalaJack)

Production codes on supercomputers are struggling to remain scalable
each time the processor core count increases by a factor of 10, even
though they run efficiently at smaller scale.
But root cause diagnosis fails at petascale since (1) symptoms of
performance problems can be subtle, (2) only few
metrics can be efficiently collected and (3) tools can only feasibly record
a small subset of even these metrics.

This work addresses these problems by creating a framework that allows
application developers to focus on data analysis that drives customized
data extraction combined with on-the-fly analysis specifically geared
to their individual problems. This is accomplished by combining trace
analysis and in-situ data analysis techniques at runtime, thereby
lifting data reduction to a new level where it IS analysis. With this
approach, modular measurement and analysis components are combined to
selectively extract representative data from production codes in a
problem-specific manner, which enables root cause analysis.

The work demonstrates the feasibility of customized data
extraction and analysis at scale for root cause analysis on current
and forthcoming multi-petascale supercomputers. It thus contributes
to sustain scalable scientific computing into the future up to the largest
scales. Results of this work will be contributed as open-source code
to the research community and beyond as done, allowing other groups to
not only build tools on top of our framework but also contribute their
own components.